Mathematical Sciences: Dynamics of Detonations and Combustion Fronts

9311659 Roytburd The PI will continue research in applied analysis and scientific computing related to nonlinear wave propagation. The work will include: i) The nonlinear evolution of low-frequency instabilities of detonation waves and an asymptotic theory for the phenomenon of detonation waves propagating along a cylindrical tube; ii) The study of a class of free boundary (free interface) problems which arise naturally as simplified conceptual models of gasless combustion and fast solidification. These free boundary problems demonstrate a variety of dynamical patterns that are essentially low-dimensional. The qualitative behavior of these model problems and their connections with the front motion description will be investigated both analytically and numerically. %%% The proposed theoretical investigation will contribute to a better understanding of a number of engineering problems that include: the design and safe use of highly energetic propellants; safe handling of explosives; the process of synthesizing of certain ceramic and metallic alloys via solid combustion; explosive solidification of thin films and others. On the other hand, the mathematical models that the PI proposes to investigate appear to be generic and are encountered as simple building blocks also in other contexts. Their investigation will lead to progress in dynamical systems theory. ***